Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring.

Dr. Watson received her Ph.D. in Electrical Engineering from Texas Technical University in 1982. Currently she is a Professor of Electrical Engineering and Associate Dean of Engineering at Texas A&M University. Dr. Watson has directly mentored several hundred women and minority students during her career. Particular achievements of Dr. Watson include: 'Mentoring and Institution and its faculty.' Her work at Texas A&M in implementing the institutionalization of practices which insure participation by women and minorities. Directing the Texas Alliance for Minority Participation Program (AMP). Establishing the Ph.D. pipeline, a collaborative between an HBCU and Texas A&M to provide a Ph.D. pathway for interested minority students. Receiving over $15 million from state, Federal and private organizations to fund programs for mentoring women and minorities, supporting the retention of pre-college, undergraduate and graduate efforts. Receiving numerous awards from academic and industrial organizations for her teaching, mentoring and achieving diversity in engineering and science pathways.